Image Reconstruction Algorithms for Optical Tomography with Large Data Sets Using the Radiative Transport Equation

Markel, Vadim A. Univ. of Pennsylvania / Kim, Arnold D. Univ. Of California-Merced
0615857 / 0616228
Image Reconstruction Algorithms for Optical Tomography with Large Data Sets Using the Radiative Transport Equation
It is well known that modern medical imaging has revolutionized the practice
of clinical medicine. What is perhaps less well known is the critical role
that advanced mathematical tools have played in the development of imaging
technologies. In this proposal, we plan to explore fundamental mathematical
problems at the core of optical tomography. Optical tomography (OT) is an
emerging biomedical imaging modality which employs near-infrared
light as probe of tissue structure and function. At the heart of OT is an
ill-posed nonlinear inverse problem. We propose to develop new mathematical
tools to attack this problem by building on recent progress made by the
co-investigators in the areas of inverse scattering theory and radiative
transport theory. The investigators have recently demonstrated the ability
to reconstruct immages using reconstruction algorithms that are valid within
the diffusion approximation to the radiative transport equation (RTE). We
now plan to extend this development to physical situations in which the the
full power of the RTE is required. Two key developments pioneered by the
con-investigators makes the research we propose feasible and timely. The
first of these is the construction of analytical methods for
the inverse scattering problem in radiative transport. The second enabling
development is the recent discovery of plane-wave decompositions for the RTE
Green's function. The proposed research integrates the development of new
mathematical methods with algorithm development and experimental validation.
We have assembled an interdisciplinary and highly collaborative team of
investigators with complementary skills who are uniquely
qualified to carry out this research. The team consists of a computational
physicist (Vadim Markel), an applied mathematician (Arnold Kim), and a
theoretical optical physicist and physician (John Schotland).

The intellectual merit of the proposed research is the development of
efficient imaage reconstruction algorithms which are based on novel and
original mathematical theories. One graduate student at the University of
Pennsylvania will be trained in computational and analytical methods of
image reconstruction. A postdoctoral fellow at the University
of California, Merced will be trained in the area of forward problems in
transport theory.

The broad impact will include improving the quality of reconstructed images
in optical tomography. We expect that when the proposed developments are
fully realized, they can significantly improve the clinical utility of
optical tomography. Furthermore, although the proposed work is focused on
optical tomography, some of the results may also lead to a greater
understanding of the propagation of multiply scattered waves in random
systems such as the atmosphere and interstellar media.